Intertidal Production Cycles

The Research Improvement in Minority Institutions (RIMI) program was designed to increase the participation of minorities in research. The program provides support to strengthen the research environments and capabilities of institutions that have substantial minority student enrollments. Eligible institutions must also have graduate programs in science or programs in engineering. The principal investigator at California State University - Los Angeles will use RIMI support to continue research on the intertidal foraging patterns for two-types of predators, spring lobsters and sea stars, and their impact on sedentary prey populations (e.g. M. californianus). Research studies will expand our understanding of shore movement of predators, age size structure, and boundaries of prey zones for high prey productivity and low prey productivity. This project on prey productivity and predation will strengthen the research infrastructure of an institution that educates students in marine science. The principal investigator is a productive scientist who is well respected by his peers for his work in this area and he continues to publish in refereed journals. This RIMI project will enhance opportunities for minorities to choose careers in the ocean sciences.